Amplification and Refinement of Bayesian Scientific Methodology

Scientific inference, the process of going from particular instances to general laws, has been a matter of philosophical concern since the time of Aristotle. Not until Thomas Bayes (1763), however, was there any explicit method presented to use probability theory to justify the inference from particulars to general laws. The entire family of Bayesian scientific methodologies formulates scientific inference in terms of the concept of epistemic probability, considers the prior probability of scientific hypothesis to be a meaningful concept, and makes use of Bayes's theorem for evaluating posterior probabilities. A version of Bayesianism proposed by Professor Shimony in 1970, called "tempered personalism," recommends that personal probability evaluations be "tempered" by openmindedness towards all seriously proposed hypotheses in an investigation. Among the virtues of tempered personalism is the possibility of arriving at a non- negligible posterior probability for a strong scientific generalization. There are, however, some weaknesses in tempered personalism which require modifications: notably, a difficulty in justifying the axioms of probability, the vagueness of "seriously proposed," and uncertainty regarding the evaluation of the "catch- all" hypothesis. Under this grant, Professor Shimony, working with two graduate students, is amplifying and refining his original positions to take account of these difficulties. He expects to remove the first difficulty by a procedure of "tempering without tempering." He believes the second and third difficulties are ameliorated by properly combining analytic propositions of probability with a posteriori principles. He and his students are undertaking a number of scientific case studies for the purpose both of illustrating the power of this refined methodology and for heuristics in formulating the a posteriori principles in inductive inference.